Architectural Lessons from the September 1985 Mexico City Earthquake: A Learning and Applications Project for Architects

The project will (1) develop a methodology for systematically collecting data relevant to architectural decision making; (2) collect the needed data using CAM/SAM's resources and first-hand knowledge of Mexico City buildings, design firms, and design practices: (3) convene a working symposium of leading U.S. and Mexican architectural practitioners and researchers to analyze the data and other relevant information, indentify lessons learned, and develop consensus guidelines; and (4) publish and disseminate these guidelines to U.S. architects through a national conference and the existing channels of the AIA. Th project will focus on three areas: the architect's role in earthquake hazard mitigation, the effects of building configuration, and the effects of nonstructural building components.